Conference of Eminent Earth Scientists and Educators for thePlanning of a K-12 Earth Science Education Framework

The goal of this conference is to develop a k-12 Earth Science Education Framework. Approximately twenty geoscientists representing NASA, NOAA, USGS, and NSF-Geoscience research programs, twenty earth science teachers, and several specialists in earth science education will take part in a 5-day conference to undertake this task. A pre-conference paper will be prepared by each scientist delineating the major concepts of Planet Earth within their field of expertise. During small group sessions at the conference teachers will work with scientists to identify those concepts that are important for all students and those that should only be introduced to students desiring to pursue a career in one of the sciences. This award will only cover about ten percent of the cost of this conference. The major cost of the conference will be funded by other government agencies, publishing companies, school systems, and the American Geological Institute.